Structure, Mechanism & Biosynthesis of Methylamine Dehydrogenase

Methylamine dehydrogenase (MADH) from methylotrophic bacteria contains tryptophan tryptophylquinone (TQQ) as the essential redox cofactor. TTQ is biosynthesized by in situ transformation of 2 tryptophyl residues in the small subunit of MADH. MADH from bacterium W3A1 (MADHw) has unusual spectral properties. The UV- visible spectrum is very sensitive to the presence of the monovalent cations Li+, Na+, K+, Rb+, Cs+, NH4+, (CH3)3NH+ and (CH3)4N+. NH4+ interacts with MADH in a biphasic manner, the binding of which can serve as a model for the enzyme's initial interaction with the substrate, CH3NH3+. Research aims are: 1. Study the cation interactions in more detail by UV-visivle and resonance Raman spectroscopy, and by steady-state kinetic analysis. 2. Begin work on the comparison of the basic properties of MADHw and MADH from Methylobacterium extorquen sp. AM1 (MADHA) to establish the similarities/differences for 2 major subclasses of this enzyme. 3. Initiate steady-state kinetic studies of the interaction of MADHW and its physiological electron acceptors. 4. Attempt to obtain the x-ray structure of MADHA. 5. Endeavor to obtain the structures of the enzyme an isoform in complex with their physiological electron acceptors. 6. Using the MADH structures, chose amino acids for site-specific mutation. The mutants will be used to elucidate the mechanism of substrate oxidation, electron transfer, cation binding, enviromental interactions, etc. 7. Conduct some experiments that should shed light on the mechanism of biosynthesis of the cofactor in MADH. %%% The enzyme methylamine dehydrogenase is isolated from numerous soil bacterial classified as methylotrophs. The enzyme converts methylamine (CH3NH2 to formaldehyde and ammonia, and the organism uses these as the only carbon and nitrogen source for growth. In order to carry out the conversion of methylamine, the enzyme contains an essential factor (the coenzyme) that is formed by modification and crosslinking of two specific amino acids units (tryptophans) in the enzyme. The absorption of visible light (i.e., the color) of the enzyme-bound coenzyme is changed on addition of any of several positively charged ions. Among these are the ions of lithium, sodium, potassium, rubidium, cesium, ammonia and trimethylamine ı<CH3)3N!. Studying this phenomenon in more detail will provide essential information regarding how the enzyme is able to convert methylamine to formaldehyde and ammonia. Research aims are: 1. Study the ion interactions in more detail by several spectroscopic method, and investigate how the ions affect the rate at which the enzyme converts methylamine. 2. Begin work on the comparison of the basic properties of two, somewhat different forms of methylamine dehydrogenase from different bacteria. 3. Initiate studies of the interaction of methylamine dehydrogenase with other proteins that are required for the conversion of methylamine. 4. Obtain and refine the 3-demensional structure of two forms of methylamine dehydrogenase, and the structures of these when bound to other proteins. 5. Using these structures, chose amino acids for site-specific mutation (i.e., the selective substitution of specific amino acid in the protein by another amino acid). The mutant forms will be used to elucidate how the enzyme functions on a molecular level. 6. Conduct some experiments that should shed light on the mechanism of conversion of two tryptophan groups into the essential coenzyme.